Microbial Mediation of Trace Metal Cycling in Four Stratified Antarctic Lakes

9819172
BRATINA
The proposed research will examine the role of microbial influences on metal cycling in four stratified lakes in the McMurdo Dry Valleys: Lake Fryxell, Hoare, Joyce and Miers. These lakes are characterized by unusually stable redox transition zones and are especially amenable to a finely spaced sampling regime. Collectively, they represent a broad range of water chemistries. The proposed research will test the following hypotheses: (1) Instratified water columns there will be a clear spatial difference between the onset of manganese reduction and the onset of iron reduction. Heavy metals and rare earth elements will be seen to undergo co-cycling with manganese rather than with iron. (2) In all four lakes, manganese reduction will be associated with the presence of carnobacteria or with other manganese-reducing organisms. In brief, the study will explore the link between microbial activity and the cycling and fate of a large suite of chemical elements at key redox boundaries. Dissolved and particulate metal profiles will be examined as a function of depth from the ice-water interface to the sediments. Profiles will be correlated with microbial manganese-reduction assays and the presence of manganese reducers as detected by screening with Mn-oxide overlay agar plates and nucleic acid hybridizations with probes for known manganese reducers. The research will include significant involvement of undergraduates.